Modernizing Instruction in Taxonomy and Systematics: Materials for High School Biology

9730648 McInerney The Biological Sciences Curriculum Study (BSCS), in collaboration with the Expert-center for Taxonomic Identification (ETI), Amsterdam, The Netherlands, and Ward's Natural Science Establishment, Inc. Rochester, New York, are developing and publishing an interactive CD-ROM on taxonomy, systematics, and biodiversity for use in high school biology courses. Ten developed activities are interactive and laboratory-based investigations that allow students to use a variety of data (for example, morphological, behavioral, and molecular) to construct and analyze classifications of groups of organisms both extant and extinct. The approach is one of viewing classification systems as active hypotheses that represent current understandings and relatedness of life on earth. Students are able to access the database that is central to the CD-ROM and are directed to other, public databases that are related to systematics and biodiversity.